SBIR Phase I: Microlaser Array

This Small Business Innovative Research (SBIR) Phase I project aims to develop a new class of low threshold, high efficiency laser array for telecommunication and optical integration applications using nanomaterial fabrication technology. By incorporating photonic crystals into nanochannel-hosted dye lasers, a novel microlaser array will be developed. Laser active dye materials have been proven to emit coherently in microcavities of nanopore host microcrystals. By incorporating the photonic crystal concept in the microlaser cavity design, more efficient lasing is anticipated for the embedded dye microlasers. Success in developing a microlaser array will lead to flexible and novel products for telecommunication and optical circuits. The Phase I program will investigate the fabrication of nanochannel materials, characterize the nanochannel materials, and determine how to incorporate the photonic crystal into the nanochannel materials.

Since microlaser arrays can be readily incorporated into silicon-based photonic devices, there are immediate commercial applications to the telecommunication industry. There is also long term potential for microlaser arrays in display, laser printing and all optical integrated circuits.